Aspen Winter Condensed Matter Physics Conference, Aspen, Colorado, January 17-23, 1988.

The 1988 Aspen Winter Physics Conference, Condensed Matter Physics portion, will be on "Theoretical Foundations of High Temperature Superconductivity." The goals are to identify the most promising theoretical models, to distill the most critical experimental results which bear on the superconductivity mechanism and to establish the crucial experimental tests of the theories.